MRI: Acquisition of High Performance Computing and Data Visualization for Scientists and Engineers

This project from an EPSCoR state, adding a new visualization capability by upgrading current RCF machine, provides high performance resources and training to a broad user base. The infrastructure doubles the current capacity and memory, servicing 15 departments distributed over four campuses. The shared-memory presented to the user by this SGI instrumentation provides a suitable architecture for algorithms that require large amounts of inter-processor communication. The visualization feature allows researchers to view animation or graphical output on their own display, making it possible to work remotely. The visualization capability enables up to 16 researchers to interact simultaneously from remote sites, thus enhancing distance collaboration and educational outreach. Research activities involve:
Grid Computing,
Middleware Research,
Atomistic Computer Simulation for the Nanoscale,
Mesoscale Meteorological Modeling,
Genome Research
Roadway Safety - Modeling Vehicle Crashworthiness, and
Reducing the Design-Testing Cycle in Systems on a Chip.
The university will use the infrastructure to enhance diversity.